SGER: Attitudinal antecedents of war

This project, submitted under the Small Grant for Exploratory Research (SGER), examines the
antecedents of public support for U.S. military incursions into foreign states. In particular, it will
examine the factors that motivate U.S. citizens to support the proposed invasion of Iraq through
methodologies developed in social psychology. The current international situation presents a
unique yet perishable opportunity to gather empirical data that address this topic. A growing body
of evidence suggests that individuals make punishment decisions on the basis of just deserts rather
than utilitarian justifications such as deterrence or incapacitation. The present research will
examine whether citizens -- contacted through a nationally representative survey -- respond to
potential military action against sovereign states in a similar manner. Specifically, it is
hypothesized that support for war will be determined primarily by an individual's perception that
the foreign state is deserving of the invasion, and that the invasion represents a morally appropriate
and proportional response to prior acts of harm. It is further predicted that concerns with
incapacitation (e.g., limiting Iraq's ability to wage war), deterrence (e.g., inhibiting other potential
"rogue nations" from threatening U.S, interests), and general utility (e.g., economic outcomes) will
be only weakly related to attitudes about the invasion. These studies represent an important step
forward in tracing individual psychology to matters of international relations, and will provide a
test of whether micro-level theories of punishment can be extended to include macro-level
situations.